Engineering Foundation's Fourteenth Enzyme Engineering Conference, October 12-17, 1997, Beijing, China

9712619 Dordick The Enzyme Engineering Conference is the longest, continuous conference series that is sponsored by the Engineering Foundation. The first meeting was held in New Hampshire in 1971 and every other year thereafter. The meetings alternate between domestic and foreign locales. The conferences are generally attended by 150-200 world leaders in enzyme engineering research. Over half of the speakers are from foreign nations. The theme of the 1997 conference is "technologies that have the potential for dramatically shaping biotechnology and chemical technology in the 21st century". Leading enzyme scientists, including many of our BES awardees (e.g., Arnold, Dordick, Clark) are participants. Among the key sessions are: Protein engineering enzymes Fine chemical synthesis using enzymes Extremozymes Artificial enzymes Environmental biocatalysis Analytical applications of enzymes The conference will provide an excellent opportunity for U.S. researchers to network with foreign scientists in the field, many of whom come from countries with extensive enzyme-use history, e.g., Japan. The proposal requests $12,000 from NSF to support the travel and registration costs of six of the U.S. speakers. ***